NSF Astronomy and Astrophysics Postdoctoral Fellows Symposium

Dr. Ted von Hippel (University of Texas - Austin), along with collaborators Peter Frinchaboy (University of Wisconsin - Madison) and Kurtis Williams (University of Texas - Austin) are awarded funds to organize and conduct the sixth annual symposium of the National Science Foundation Astronomy and Astrophysics Postdoctoral Fellowship (AAPF) program. The symposium, to be held January 6-7, 2008 in Austin, Texas, will bring together the AAPF fellows, faculty mentors, prospective AAPF applicants, and interested members of the astronomical community. This will allow the fellows to present their research and educational activities, and better establish ways to enrich the fellowship experience itself. Additionally, fellows will obtain opportunities to establish interdisciplinary projects with colleagues during the symposium.

The integration of educational activities into the research efforts of the fellows provides for a broad impact of the fellowship program. Many fellows participate in K-12/public outreach activities, leading to enhancement of the public's interest in science. The symposium will allow the fellows to share their ideas and experiences, not only among themselves, but also with faculty mentors and with others in attendance.